Ultrafast Nonlinear and Coherent Spectroscopic Studies of Molecular Motion in Liquids

Dr. Mark Berg is supported by a grant from The Experimental Physical Chemistry Program to investigate the molecular motions of solvent molecules in the vicinity of a solute in solution. Berg will use sophisticated laser techniques to study the rattling motion of solute molecules within their local solvent cages, and the cooperative rearrangements of the local solute- solvent structure. This research will explore the solvent motion around a solute molecule and the coupling of that motion to the electronic, vibrational and orientational states of the solute. Ultrafast laser technology will permit the direct time resolution of the fundamental motion in liquids. Through a combination of nonlinear and coherent spectroscopic techniques it will be possible to discriminate between the effects of different types of solvent dynamics. These techniques, specifically transient hole burning and Raman echoes, have well understood analogues in the solid state and gas phase, but have not previously been widely applied to the liquid state. These experiments will lead to new measurements of solute reorientational dynamics, and the delocalization of vibrational motion in pure solvents.